Growth and Properties of Wide-Band-Gap Mercury-Cadmium- Telluride Films & Quantum Well Structures

This research is on the topic of synthesis and electronic properties of mercury cadmium telluride compounds. The materials will be synthesized using conventional and photo-assisted molecular beam epitaxy. Characterization will be done using optical, electrical, and photoelectric measurements, double crystal x-ray diffraction, reflectance/transmittance spectroscopy, infrared photoluminescence, Hall effect, photoconductivity, and electronic carrier lifetime measurements. Multilayer (double heterojunction) and superlattice structures will be studied.